Introducing Digital Maps and Image Analysis to Undergraduates in the Field and in the Classroom

Albion College is using a Geographic Information Systems (GIS)/Computer Aided Mapping (CAM) laboratory, located in the Department of Geological Sciences, to incorporate digital mapping and image analysis into the College's curriculum. Albion has a strong program in geology, including a nationally recognized summer geology field program. The GIS/CAM laboratory includes the equipment necessary for the creation, manipulation, analysis, and display of digital images using modern GIS and CAM techniques. This laboratory allows the College to make substantial, forward-looking improvements in both our geology field program and the on-campus geology and environmental science curriculum. The summer geology field program is adding an introduction to digital field mapping; at the end of the program students return to the Albion campus for a week-long intensive course on the creation and use of digital maps. Secondly, two new courses on GIS and digital maps are being developed. An introductory level course introduces the fundamentals of GIS and CAM to a broad spectrum of students including non-science majors. The second course allows upper-level students to apply their GIS/CAM skills to their own geological and environmental research projects. Finally, the new laboratory allows the revision of traditional geology laboratory mapping exercises and projects, including an introduction to quantitative spatial analysis, in as many as nine existing geology courses. This includes the high-enrollment Introductory Geology course, in which students can apply GIS/CAM techniques to existing mapping projects. This project is an integral part of a broader effort to develop a more engaging research-oriented curriculum using up-to-date equipment and techniques.